Second Workshop for High School Students of Mathematics and Science

The intellectual merit of the proposed Workshop
The purpose of this workshop is to enhance the cooperation among various control
groups and high school students of mathematics and science throughout the United States
and the world, to give attention to control and systems ideas and technology, and to
increase the general awareness of the importance of control and systems technology and
its cross-disciplinary nature among high school teachers and students.
Control and Systems Science occurs in many different disciplines and its applications
occur in a wide variety of technologies. It involves a variety of tasks, such as, modeling,
identification, simulation, planning, decision-making, and optimization.
Some application areas of control and systems include transportation, manufacturing,
communications, processing industries, and financial markets. The basic control systems
science influences and impacts a diverse range of study, such as, biology, physics,
chemistry, economics, and medicine.
The broader impacts of the proposed Workshop:
The need of modern industry for well-trained systems scientists is growing and changing,
due to the marketplace pressures and the advances in technology. Future generations of
our students will have to be broadly educated to cope with cross-disciplinary applications
and rapidly changing technology. The backgrounds of our students are changing too.
They are better prepared to work with modern computing technologies. Thus the time is
ripe for major renovations in mathematics and science education in high school. It is
important to develop a cross-disciplinary set of examples, demonstrations and laboratory
exercises that illustrate systems and control across the entire spectrum of mathematics
and science. We will share with high school teachers our successful control stories,
existing tools and experiments. There is much to be gained by the sharing of educational
experiences and practices.